Computer Simulations of Inhomogeneous Fluids

Computational Chemistry Program to perform computer simulations of inhomogeneous fluids. The objective of the research is to develop a more comprehensive understanding of the structure of the electrochemical interface. Both Monte Carlo and molecular dynamics simulations will be employed using two cell geometries. In one case both bulk and interfacial regions will be considered in contact with a finite sized electrode. In a second cell simulation two walls will be infinite electrodes with periodic boundary conditions in the other two directions. An NVT simulation will be used. Various combinations of charged, uncharged, and oppositely charged electrodes will be considered while employing both simple and sophisticated model potential functions for water. The results will form the basis for extending formal theoretical approaches that employ integral equation and density functional methodologies. The research will be performed in collaboration with Richard Rowley of Brigham Young University and Stefan Sokolowski from MCS University in Lublin, Poland.

Electrochemistry has industrial importance for both chemical synthesis and analysis. A molecular level understanding of the important double layer at the electrode surface could have a significant impact on optimizing the design of industrial electrochemical systems.